RAPID Collaborative Research: Short-term colonization processes at Costa Rica methane seeps

This RAPID project will conduct 5 submersible or ROV dives to collect a series of colonization experiments deployed in March 2009 on Mound 12 off Costa Rica (997 m). These experiments were deployed opportunistically, and to optimize the information that could be obtained, the PIs needed to recover them within a 12 month time frame. Early colonization of rock, wood, shell and tube substrates will be studied. The microbes, foraminiferans and metazoans present after 6-12 mo will be compared to those colonizing similar experiments to be deployed at Hydrate Ridge, where seeps occur within an oxygen minimum zone. The overall project goal is to integrate physical, geological, chemical and biological data to develop a holistic view of the influence of seep-generated carbonate hard-ground ecosystems on margins.

The objectives of the research are to (a) Compare colonizers at seeps off Costa Rica and Hydrate Ridge to assess the importance of different oxygen regimes in the development of anaerobic methane oxidation, sulfide oxiders and other microbial metabolisms on hard substrates, and to evaluate their roles in driving protozoan and metazoan succession at methane seeps. (b) Deploy a suite of biotic and abiotic substrates to distinguish the specific roles of carbonate substrate from those of other hard substrates (wood, clam and mussel shells, worm tubes) available. (c) Explore the similarity of vent and seep colonization processes by comparing colonization at the Costa Rica seeps, where vent species are common, to the Hydrate Ridge seeps, where they are not. (d) Determine whether there are diagnosable biogeographic isotope or other biomarker signatures from newly recruited Costa Rica microbial, foraminiferal and animal populations at active vs. inactive seeps, and whether these differ from those at Hydrate Ridge.

This research will involve international participation from Costa Rican scientists at the Univ. of Costa Rica. The collections will provide material for summer research projects by diversity students. In conjunction with results from the parent project, the research will be disseminated in coursework at 3 teaching institutions. Additional broader impacts include community outreach (local school presentations; web site development) and interdisciplinary, hands-on training of several future scientists, including underrepresented groups (women; first-generation university graduate and undergraduate students from rural communities).